Mathematical Sciences: Several Complex Variables

9403761 Ji The research entails the geometry and analysis of holomorphic mappings on classes of complex manifolds. The latter involves such questions as value distribution and the Jacobian conjecture for polynomial maps between complex Euclidean spaces. The research has potential applications to other areas of mathematics including algebraic geometry and complex analysis. ***